Mathematical Sciences: Inverse Problems in Neutron Reflectometry

The goal of this research is to investigate analytically and numerically an inverse scattering problem that arises in neutron reflection physics. One seeks to recover the neutron interaction potential, which is a bounded, real valued function defined on the real line, that is zero to the left of the origin, and approaches a nonzero constant as the space variable tends to positive infinity. The information to be used for the reconstruction is the amplitude of the reflection coefficient corresponding to a wave incoming from the left, defined in the usual quantum mechanical sense. Because the reflection coefficient is in general complex valued, the missing phase information is the central difficulty, and in fact this problem is closely related to the well known phase retrieval problem in optics. However, even if the full complex reflection amplitude were known, the problem still presents some new aspects, in comparison with standard formulations of inverse scattering for the Schrodinger equation, because of the fact that the potential does not decay to zero. The investigator will also consider some cases in which the phase data are partially known. In the neutron scattering application, one may usually assume that the potential does not have any bound states, and this hypothesis is essential for the main line of approach. Nevertheless the case when bound states are present is of some interest also, so an alternative procedure allowing for this possibility will be investigated. A newly emerging technology for the detailed analysis of chemical and magnetic properties of layered materials is the use of neutron reflectivity data. For example, there are many applications to the study of surface and interface structure at the molecular level for polymer blends. This in turn is a valuable tool in the development of new high performance materials. In a typical experimental set up, a beam of neutrons is incident from a vacuum region onto a reflecting material, whose material properties vary only in the direction perpendicular to the material surface. An instrument called the neutron reflectometer measures the reflected neutron intensity with high precision as a function of the particle's momentum in the direction perpendicular to the surface. These data are thus dependent in some manner on the so-called neutron interaction potential, which is a function of location within the material. If this potential can be determined, then other physical properties of the material can be directly inferred. The proposed research addresses directly the problem of interpreting reflectivity data in order to determine the interaction potential. Specifically, the investigator seeks to understand the mathematical structure of the problem, and to develop accurate and reliable computational procedures.